High Performance Network Connections for Science and Engineering Research (HPNC)

The proposal plans to connect CSU to OARNet and then to the Abilene Network to support research requiring a high performance connection in the following areas:
Computational chemistry (supercomputer requirements)
Enzyme research (supercomputer requirements)
Health Sciences and Curriculum & Foundations Departments(distance education)